Non-Steady Solutions of Models Describing Smoldering Combustion

DMS - 9971881

Non-steady Solutions of Models Describing Smoldering Combustion

Daniel Schult

Colgate University

Abstract

Smoldering combustion refers to combustion in which the primary reaction
process involves both solid and gaseous reactants instead of the gas/gas
reactions seen in common flames. Smoldering often occurs when oxidizer
supply to the reaction is limited, for example because it must flow
through porous media to reach the reaction site. Models of smoldering
combustion require a description of porous fluid flow as well as a
description of the reaction process. The resulting partial differential
equations are highly nonlinear, making description of solutions difficult.
Numerical simulations involving adaptive methods which change resolution
as the process evolves have been able to approximate steady solutions to
these models in some detail. Asymptotic methods have also been successful
in describing steady and slowly varying approximate solutions to these
models. The proposed project involves extending both asymptotic and
numerical methods to the study of non-steady solutions and then using
these techniques to describe the details of the dynamics and transitions
of these solutions. This project should be of interest to scientists
using asymptotic methods, using adaptive numerical methods, studying
systems with multiple solutions, interested in issues of stability of
solutions with many time scales, or interested in the development of
chaotic solutions. It will be of particular interest to fire safety
experts who wish to understand dynamics of smoldering near extinction
limits, transitions from smoldering to flaming and patterns of smolder
propagation through materials.

Smoldering combustion is the burning of a solid without an airborne flame.
It is of interest for fire safety not only as a precursor to flaming, but
also because it tends to release large quantities of toxic gases.
Smoldering is also used in the design of timing devices (ignition fuses),
and material synthesis processes such as self-propagating high-temperature
synthesis. Understanding the mechanisms and processes behind smoldering
can enhance fire safety as well as allow better control for engineering
uses of smoldering combustion. Models of smolder processes involve
highly nonlinear partial differential equations making description of
solutions difficult. Approximate descriptions exist for steady uniform
propagation and slowly varying propagation, but smoldering often involves
complicated non-steady behavior. Understanding the mechanisms which
drive this dynamical behavior should help us control smoldering systems
and may even allow design of desirable smolder dynamics. The proposed
project involves developing and extending high-performance computing
algorithms as well as analytical asymptotic methods to the study
of non-steady smolder and then using these techniques to describe the
details of the dynamics and transitions of these complex smolder waves.
The solution methods introduced by this work and the specific
descriptions of the dynamics of smoldering will increase our
understanding of the smoldering process and transitions to flaming.
In addition, the techniques will likely be applicable in other areas of
combustion and problems of flow in porous media. This project should be
of interest to scientists using asymptotic methods, using adaptive
numerical methods for high-performance computing, studying systems with
multiple solutions, interested in issues of stability of solutions with
many time scales, or interested in the development of chaotic solutions.
It will be of particular interest to fire safety experts and combustion
control engineers who wish to understand dynamics of smoldering near
extinction limits, transitions from smoldering to flaming and patterns
of smolder propagation through materials.